ITR/SI - A Networking Protocol for Underwater Acoustic Networks

We propose development of a network layer protocol necessary to increase the utility of acoustic
communications in the shallow water environment. Increasing attention has been given to collecting data
from difficult to access coastal waters for diverse activities, to include scientific research, industrial and
commercial concerns, and military applications. The preponderance of activity has focused on
developing reliable methods for transmitting the information collected through the difficult time-varying
shallow water medium. However, current network layer protocols, which are responsible for determining
traffic routing, do not provide for guaranteed quality of services. Current protocols also may cause
unnecessary message delays.
The delivery of traffic in an acoustic network is complicated by the excessive propagation delays
resulting from the speed of sound in water. The effect of this propagation speed is to cause an acoustic
network connected by short hops to perform similar to a wire-based network with links between
neighboring nodes of over 100,000 kilometers. However, the potential benefits and increased potential
for application developments that stem from the implementation of wireless underwater networks make it
worthwhile to explore means of mitigating the effects of the propagation delays.
Central to the problem of route determination for network traffic is the discovery of the networks
topology from which network nodes extract next-hop information upon which to base traffic forwarding
decisions. Two principal methods are used for discovering the route information. Proactive routing
methods pre-compute route data before network traffic is generated, thus when traffic is submitted by
network applications the appropriate routes are already known. Reactive routing determines the route
information in response to traffic submissions. This method, referred to as on-demand routing, seeks to
minimize route discovery traffic by only determining routes necessary to support actual traffic patterns.
This routing information is cached to increase responsiveness to submitted traffic and adaptability to
topology changes. Both methods have their merits; however, neither adequately supports resource
allocations necessary to assure guaranteed levels of service quality.
We proposed a novel network protocol that provides many of the benefits of proactive routing yet
retains the adaptability of reactive protocols. Our protocol is based upon a central master node which
periodically probes the network for active participant nodes. In responding to the probes, the nodes
provide the master node with sufficient information for the master node to determine all possible data
paths through the network. From this information the master node makes all routing decisions for the
network and provides irnext-hoply information to each non-master node, thus reducing the workload on
non-master nodes. This information also enables the master node to optimize the allocation of traffic to
network paths providing for active management of delays insuring delay variance and data capacity are
within the established quality of service commitments.
Fundamental to this approach is the separation of control traffic from data delivery. This separation
allows data to be transmitted without first having to wait for traditional handshake mechanisms to provide
access to the channel. This separation significantly reduces the expected delay to which traffic is
subjected resulting in potentially higher data throughput.
Progress in network layer protocols will expand the usefulness of underwater acoustic networks
beyond applications that are limited to very low data rate traffic and non-time sensitive data types.
Specific beneficiaries of this research activity include the Deployable Autonomous Distributed System,
the SeaWeb Technology Demonstrations, the Autonomous Oceanographic Sampling Network, and the
National Oceanographic partnership Programs Front Resolving Observational Network with Telemetry
(FRONT) project.